Travel Grant for U. S. Participants in the 6th Japan-U. S. -China Symposium on Catalysis

Support is provided for the U. S. delegation to the Sixth Trilateral Symposium on Catalysis to be held in Beijing on June 8- 11, 1993. This joint meeting, which rotates among the U. S., China, and Japan, is acquiring increasing importance in technological exchanges in the Pacific Rim.